Engineering Research Experience for Women and Minority Undergraduates

An "Engineering Research Experience for Undergraduates" (REU) Site for ten women and minority students will be in the College of Engineering at Texas A&M University. The REU program will be conducted in conjunction with an ongoing Undergraduate Summer Research Program, sponsored by the Texas Engineering Experiment Station for the past ten years, and the Minority Engineering Program. Students for the REU program will be selected from institutions that have predominantly minority enrollments including the University of Texas at El Paso, University of Texas at San Antonio, University of Texas Pan American, University of Puerto Rico, Trinity University, and Prairie View A&M University as well as Texas A&M University, with at least half from other institutions. Individual research projects will be undertaken by the undergraduate students in conjunction with on-going research programs, and regular faculty involved in these programs will serve as advisors for the participants' research activities.